Enhancing Internet Access at West Virginia Colleges and Universities

9417406 Bryan The West Virginia Network for Educational Telecomputing (WVNET) is seeking NSF Funding from the "Connections to NSFNET" Program to upgrade network access in the state through West Virginia's higher education system. WVNET os proposing to install communications equipment and T-1 lines at 28 sites throughout the state. The installation of the equipment will provide additional access for students , faculty, and staff; this will also allow for new opportunities for community use. In addition to equipment installation, WVNET will provide technical and end-user training to ensure that the goal of this project is met: to enhance access and utilization of national international network at West Virginia Universities and Colleges. The list of colleges that will be supported include: Bluefield State College, Bluefield State - Greenbrier Campus, Charleston Area Medical Center, Concord College, Fairmont State college- Clarksburg, Fairmont State College - Fairmont, Glenville State College Glenville, Glenville state College Summersville, Marshall University, Potomac State College, Shepherd College, Southern WV Community College - Logan, SWCC- Madison, SWCC- Saulsville, SWCC - Williamson, West Liberty State College, West Virginia Graduate College, West Virginia Institute of Technology, West Virginia Northern Community College - New Martinsville, WVNCC- Weirton, WVNCC- Wheeling, W.V. School of Osteopathic Medicine, West Virginia State College, WVU at Parkersburg, WVU-P - Jackson County Campus.